NSF-EPSRC: From Smooth to Fully Rough: A Physics-Based Drag Prediction Framework for Turbulent Flows over Rough Walls

When fluids like water and air flow over surfaces, the roughness of the surface can affect how they flow. Surface roughness influences flows around ship hulls, past iced airplane wings, through pipelines and over urban areas. Rough surfaces increase drag, which increases energy consumption and operating costs. Although rough-wall turbulence has been studied for decades, current prediction methods are largely empirical and often fail to explain how surface shape and texture affect drag. Flows over partially rough or moderately rough surfaces are difficult to predict because both friction and pressure forces contribute simultaneously. This US–UK collaborative project will develop a new physics-based framework for predicting drag over rough surfaces using direct measurements and advanced computer simulations. The project combines theoretical model developments and large-scale simulations performed at Johns Hopkins University with high-resolution experiments and roughness databases developed at University of Southampton. The resulting predictive tools will improve understanding of turbulent flows and support more efficient engineering systems. Potential benefits include reduced fuel consumption in maritime transport, improved pipeline and turbomachinery efficiency, and better prediction of atmospheric flows. The project will also provide open-access datasets and computational tools, support training of graduate students and postdoctoral researchers, and strengthen international collaboration in fluid mechanics and high-performance computing. The project aligns with NSF priorities by supporting advanced manufacturing of engineering systems.

The project will establish a unified predictive framework linking rough-surface morphology, vortex dynamics, and drag generation across smooth, transitionally rough, fully rough, and patchy surface conditions. The research will combine high-fidelity direct numerical simulations with laboratory experiments to resolve the interactions among turbulent vortices, shear layers, and roughness elements. The team will extend the Force Partitioning Method to turbulent, rough wall flows to decompose drag into contributions associated with coherent vortices, viscous diffusion, and shear stresses. These analyses will be used to identify scaling laws governing mean and fluctuating drag and to quantify nonlinear interactions that arise in transitional roughness regimes. The project will also improve morphology-based drag models by integrating insights obtained from simulations and experiments into generalized predictive formulations applicable to both homogeneous and patchy rough surfaces. The resulting framework will provide a mechanistic alternative to traditional empirical roughness correlations and will generate validated datasets and predictive tools for broad community use. Research will be integrated into graduate education, educational modules on turbulence and drag prediction, and training in experiments, simulations, and GPU-enabled high-performance computing.